Signal Processing with Realistic Constraints for the InverseProblem of Electrocardiography

9309359 Brooks The objective of this Research Initiation Award is to develop improved methods to extract maximal information about cardiac electrical activity from non-invasive measurements on the torso surface. Both time-domain and frequency domain characterizations will be used to develop realistic constraints for a refined inverse solution. This research is important since it has the potential to substantially improve noninvasive diagnosis of cardiovascular disease. The research may also have applications in solving other inverse problems in other areas that are ill- conditioned. ***